II-NEW: Infrastructure for Change: From a Teaching Department to National Prominence

Over the last several years, Georgetown University has espoused a
policy of growth for its science departments. This project supports
Georgetown University's growth goals by positing a multifaceted
research program that explores new techniques for processing large
collections of text data.

The project examines how both new and existing text processing methods
may be applied to a variety of open problems across different
disciplines within computer science. Research activities include text
mining for large-scale document collections; machine learning
techniques for detecting malicious executables; information retrieval
methods for performing proactive digital forensic investigations; text
processing approaches for preventing privacy breaches in encrypted
voice-over-IP (VoIP) communication; and data mining and sentiment
detection methods for automated content analysis of large quantities
of political science texts.

To support these goals, the project includes the creation of a
next-generation infrastructure for large-scale text processing.
Data-intensive tasks will use interconnected front-end systems,
connected via high-speed networking to scalable back-end storage
solutions. The infrastructure supports the development and testing of
novel text processing algorithms on very large corpora.

The project's themes of text processing and information assurance have
been integrated into the undergraduate and graduate curricula at
Georgetown University. More broadly, the project benefits society by
improving the ability to (1) process large quantities of information,
(2) identify malicious applications, and (3) improve the resiliency of
digital communication networks to eavesdropping attacks. The project
broadens the participation in research through the University's Summer
Programs for High School Students and the Center for Multicultural
Equity and Access.